Oceanographic Instrumentation

The Institute of Marine Sciences at the University of Alaska will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V ALPHA HELIX, a research vessel owned by the NSF and operated by the University. A substantial part of the ship's operating schedule during 1989 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -A SUN work station and other peripheral computer equipment for accessing and managing large data sets at sea and at the shore-based laboratory, -Microcomputer and associated equipment for increasing shared-use, sea-going computing and communications capabilities, -X-Y Plotter for display of seafloor profiles and other data, -Niskin bottles for collecting discrete seawater samples at various depths in the water column, and -several precision, deep-sea reversing thermometers. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.